RUI: Fan-pediments in the Southern Blue Ridge Province

Fan-shaped features (fans) in the southern Blue Ridge province are essentially mantled pediments. The mantles, ranging in thickness from 1 to 30 m, consist of diamictons (probably debris flows) and alluvium, and commonly is separated from underlying metamorphic bedrock by a layer of saprolite. Rather than the depositional mechanisms that have been the focus of previous studies of Blue Ridge fans, the thrust of this study is to understand these landforms in the light of previous research on pediments in arid and semiarid regions. Fans in five areas will be mapped using aerial photographs and soil properties to delineate terraces of different ages; standard soil-development indices will be used to estimate ages of the terraces. Seismic refraction and reflection as well as drilling will be used to determine sediment and saprolite thickness and subsurface relief on terraces of different ages. In order to ascertain factors necessary for fan formation, areas with fans will be compared with other areas in the Blue Ridge lacking fans with respect to piedmont and basin morphometry, lithology, soils, and maximum clast size. A hypothesis to be tested is that fans occur only where uplands occur only where uplands supply great numbers of large boulders to the mountain piedmont.